Adaptive Algorithms for a Deformable Brain

The award will support the development, testing and evaluation of algorithms to enable the functional and structural mapping of the brain between different modalities, subjects and developmental stages. The algorithms will spatially deform data from varied sources so that they become comparable. The algorithms will be applied to positioning, warping, interpolating and parameterizing of 3D brain data. The PI will model brain using volume and surface based approaches, then transform it using methods ranging from rigid repositioning to nonlinear, local deformations. Transformation algorithms will first be measured for accuracy, reliability and validity via experiments using simulations and previously acquired data. The goal is to develop algorithms that are biologically valid as well as numerically accurate. This work will complement the Human Brain Project research and will enable the integration of independent yet complementary brain information from different sources and projects.